WoU-MMA: Continuous Gravitational Waves: from Searching to Observing

Multimessenger astrophysics (MMA) combines different means of observation such as electromagnetic and gravitational waves (GWs), as seen in the 2017 LIGO-Virgo observation of a binary neutron star inspiral associated with a gamma-ray burst, followed by multiple observations of an electromagnetic counterpart. A promising MMA target is the low-mass X-ray binary (LMXB) Scorpius X-1, long studied in X-ray, radio, and optical. This binary star system consists of a neutron star, an extremely dense object more massive than the sun and the size of a city, together with a less massive star, the outer layers of which are being pulled onto the neutron star by its gravity.
The neutron star is believed to be spinning tens to hundreds of times a second and is one of the most promising sources of long-lived gravitational waves. The goal of this project is to detect or further constrain those waves, which will broaden the field of Gravitational Wave Astronomy beyond the short-lived GW signals observed so far by LIGO and Virgo.

This project will involve faculty, scientific staff, and students of the Rochester Institute of Technology, who will conduct the most sensitive search ever for GWs from Sco X-1 using data from the fourth and fifth observing runs of the Advanced LIGO, Advanced Virgo, and KAGRA detectors, probing the range of plausible signal strengths over a wide range of frequencies, and possibly leading to the first observation of continuous gravitational waves. The program will also be extended by expanding the search to other LMXBs, improving the validation of potential detections, and transitioning from a mode of searching all the data of a run at once to ongoing incremental observations. The search for GWs from Sco X-1 is considered a "highest priority" by the LIGO scientific collaboration, and this grant will be instrumental in maximizing its success.